1991 Symposium on Applied Computing, held April 4-5, 1991, Kansas City, Mossouri

This grant partially supports the planning, organization, and conduct of the Southwestern Regional Symposium on Applied Computing (SAC91). The symposium is co- sponsored by ten regional universities, ACM, IEEE-CS, and private industry. SAC'91 is unusual in several respects: it is a vehicle for technology outreach between research institutions and teaching institutions in the area; it provides nationally recognized speakers in a regional conference setting thus allowing greater interaction with students; it draws many of its student participants from institutions with significant Native American and minority populations underrepresented in science and engineering. This is the fifth annual symposium on applied computing; it has increased awareness of the technology potential of the region and increased interaction between the supporting institutions in the region.